Collaborative Research: Phylogeny and Classification of Ranid Frogs (Anura, Natanura): Synthesis of Morphology and Molecules

Ranid frogs, comprising 23% of frog species, are declining globally, and their evolutionary relationships remain poorly understood. This project will address conflicts in previous phylogenetic studies of ranid frogs by compiling a dataset of DNA sequences for eleven genes and 400 morphological characters, for 250 species, representing all major lineages. Phylogenetic analysis of complementary morphological and molecular datasets will address contemporary analytical challenges (DNA sequence alignment, algorithm choice, optimization criteria), while re-evaluating legacy data with newly generated data. The analysis will provide a rigorous, independent assessment of recent molecular hypotheses, produce a revised classification of ranid frog families and genera, and test hypotheses of character evolution, life history, ecology, behavior and biogeography concerning ranid frogs.

A postdoctoral researcher will lead the project and collaborate with colleagues at four participating institutions. One graduate, nine undergraduate, and six high school students will be mentored. An international workshop will be held. Fieldwork will be conducted in Africa and Asia. A project website will host research products, including bibliography, illustrations, photographs, descriptions, identification keys, atlas and glossary of terminology. Data will be archived in open web repositories. These resources will facilitate future studies on ranid frogs and assist biologists, laymen and conservationists to identify them.

This project is part of a 10-year effort to digitize and mobilize the scientific information associated with biological specimens held in U.S. research collections. The images and digitized data from this project will be integrated into the online national resource as outlined in the community strategic plan available at http://digbiocol.files.wordpress.com/2010/05/digistratplanfinaldraft.pdf.